OPUS: The ecology of Lyme disease: long-term data, surprises, and a synthesis

Lyme disease is one of the most frequently reported infectious diseases in the United States. The bacteria that cause Lyme disease are transmitted by ticks to people, causing serious illness. The goal of this project is to synthesize 35 years of research to address both scientific theory of infectious diseases and to improve prediction and management of this disease. Lyme disease has become a model for understanding emerging diseases in the USA and worldwide. However, Lyme disease is a complex illness that involves interactions between ticks, bacteria, wildlife, forests, weather, suburbia, and people. Preventing this and related diseases requires improved understanding of where and when people are at greatest risk. Many ticks are infected with several pathogens, increasing human exposure to other infectious diseases. This project advances NSF’s priorities in biotechnology by providing a framework for decision making on modeling, prevention, and management of a complex and critical disease impacting human health and wildlife.

A 35-year study of Lyme disease ecology has revealed surprising results inconsistent either with population theory and with expectations from shorter-term studies. For example, (1) despite deer being considered the main reproductive host for blacklegged ticks, long-term data show no effect of deer on densities of ticks, whereas the effect of rodents is considerably stronger. (2) Although white-footed mice are the most efficient host in transmitting zoonotic infections to ticks, the effect of mouse density on infection prevalence for any pathogen is not detectable. (3) Life history theory predicts demographic forcing between consecutive life stages. Yet, contrary to expectations, the abundance of larval ticks in one year does not predict the number of nymphs the following year. (4) The body burden of larval and nymphal ticks on rodents declines as the population density of those hosts increases. (5) Weak effects of summer or winter temperature extremes on tick abundance contradict the prediction that cold or hot extremes cause excess mortality and regulate tick populations in nature. (6) The observed stability in tick infection prevalence is inconsistent with theory suggesting that this system should show a positive feedback loop between infection of ticks and infection of hosts. A review of long-term studies will explore each of the surprises in light of paradigms that arose in the 20th century. Replacement of these paradigms is central to prediction and management of Lyme disease risk. The review will facilitate further research into the ecological systems that support growing incidence of zoonotic diseases. Improved power to predict ecological causes of variable human disease risk expands both the realized and perceived utility of ecology for human health.